Tapestry-Unifying Shared and Distributed Memory Parallel Systems

This award will aid in the establishment of a parallel processing research laboratory based on a pool of heterogeneous parallel processors. The laboratory will connect shared memory and message- based parallel systems via a pool of shared memory. Users will access this heterogeneous parallel system, called Tapestry, via a high-speed network from workstations and existing facilities in the department. The Tapestry research encompasses architecture, system software, and parallel applications. A reconfigurable, heterogeneous system composed of shared memory and message passing parallel processors will provide the testbed for the Tapestry operating system, for work in performance evaluation, and for studies of selected parallel applications including numerical solution of partial differential equations.